Multimodal Interaction with Biological Molecules in Virtual Environments

A central problem of advanced computational science is making large data
sets and the results of large simulations understandable by scientists and
engineers. The best-known means of imparting this understanding is
visualization, which allows users to see the data. However, the complexity
and nature of some data makes it appropriate to represent using the other
senses. For example, shape can be determined by touch. This project studies
multisensory virtual environments for large--scale complex scientific
computing problems. To better focus the research efforts and validate the
results, it uses multimodal interaction with complex big-molecular datasets
as the driving application. It aims to devise techniques and tools for
meaningful interactions with very large biomolecular data sets in virtual
environments with visual, aural, and haptic (force) feedback. Most
biomolecular datasets consist of a few primitives (such as atom types, ammo
acid sidechains, and nucleic acid bases) that are combined to yield rich
mosaics of biological complexity. The researchers believe this is rich
enough to be representative of other scientific visualization
sub-disciplines and yet specialized enough to offer a well-defined research
target.

The research includes multimodal feedback using perception-dependent
multiresolution rendering on sequential and parallel architectures. The
proposed advances optimize the multimodal rendering processes using a set
of three characteristics common across most biomolecular datasets - limited
motif complexity, bounded accuracy, and variable level of perceptible
detail. Most scientific visualization datasets share at least two of these
characteristics and therefore advances here should further the cutting-edge
research in other areas of virtual-reality-assisted scientific computing.
Here, the researchers will use hierarchical pre-rendered representations of
common motifs to allow realism at interactive speeds in multimodal
contexts. They will also take advantage of processor support for variable
resolution integer arithmetic and the limited dynamic range and bounded
input accuracy of biomolecular data to transparently speed up multimodal
rendering by trading computational accuracy for speed. Finally, they will
take advantage of the fact that people's senses have thresholds of the
least perceptible stimuli, and that they typically perceive high details in
only a limited region, to explore techniques to address variable
level-of-detail renderings in an integrated and coherent framework across
multiple senses. The researchers will validate the efficacy of proposed
approaches on real-life datasets through a collaboration with two on-campus
biochemistry researchers working on protein folding and rational drug
design and other visiting scientists and scholars.